Louis Stokes Renewal STEM Pathways and Research Alliance: Northeast LSAMP 2021-2026

The Louis Stokes Alliances for Minority Participation (LSAMP) program assists universities and colleges in diversifying the science, technology, engineering and mathematics (STEM) workforce through their efforts at significantly increasing the numbers of students from historically underrepresented minority populations to successfully complete high quality degree programs in STEM.

Over the next five years, the University of Connecticut (UConn), lead institution for the Northeast Louis Stokes Alliance for Minority Participation (NELSAMP), with partner institutions: Northeastern University, Tufts University, University of Massachusetts-Amherst, University of Rhode Island (URI), and Worcester Polytechnic Institute (WPI) and the Connecticut Community College System, will build upon its successes to increase recruitment and STEM baccalaureate degree production to historically underrepresented minority students with an emphasis on entry to STEM graduate program. The alliance will also conduct a study that addresses non-cognitive (interpersonal and intrapersonal) factors, as opposed to academic factors, that lead to student success for this population of students pursuing STEM degrees.

The program evaluation incorporates continued assessment of institutionalization and sustainability in addition to assessing the effectiveness of NELSAMP's strategies. Project and evaluation findings will be shared with the STEM education community to build the knowledge base and foster implementation of new promising practices.